Acquisition of an Inductively Coupled Plasma Mass Spectro- meter for Geochemical Analysis of Environmental, Geologic, Extraterrestrial and Experimental Samples

9406211 Shock This award provides one-half the funding required for the acquisition of an inductively-coupled plasma mass spectrometer system to be installed and operated in the Department of Earth and Planetary Sciences at the Washington University in St. Louis. The University is committed to providing the remaining funds necessary to acquire the equipment. The analytical capabilities of the instrument are needed in research and graduate teaching within the University's new program of Environmental Geochemistry and Dynamics, as well as in a wide range of research projects in environmental geochemistry, cosmochemistry, fluid/rock interactions, analysis of sediment deposits by the Missouri and Mississippi floods of 1993, and migration of trace metals from sites of oil field brine contamination. ***